NSFNET Connection for Tacoma Community College

9402654 Zimmerman This project connects Tacoma Community College to the Internet over a 56kbps line. Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.